RCMS: Conference for Oklahoma Native American Educators and Students

The CONAMES Project proposes to design, develop, promote, conduct, and evaluate a conference for Oklahoma Native American educators and students. The objectives to this conference will be to prioritized mathematics education issues for Oklahoma Native American students and their mathematics teachers and to determine a general plan of action to solve these issues. Further, the CONAMES Project will write and submit a proposal to NSF for funding titled Oklahoma Native American Mathematics Educators and Students (ONAMES). The ONAMES Proposal will propose a project which will put into action the recommendations made by the CONAMES Conference. The CONAMES Conference will be a conference for Oklahoma Native American educators and students led and conducted by Native American educators and students. The ONAMES Project will develop and deliver mathematics education programming to Oklahoma Native students and their teachers, parents, counselors, and administrators. The overall goal of the CONAMES and ONAMES Projects is to help more Oklahoma Native American students (grades 6-12) to successfully take more mathematics courses and as a result of this, improve the high school graduation rate of Oklahoma Native American students, in particular, those sufficiently prepared in mathematics to enter a mathematics-dependent college plan of study.